An Onshore-offshore Large-offset Seismic Profile Across the Oregon Subduction Zone

The objective of this program is to understand the dip and curvature of the subducting plate, the velocity structure of the overlying accretionary complex and the configuration of the boundary between the subducting plate, the accretionary complex and the overriding accreted terrane for the Oregon margin. Program involves the emplacement of an array of ocean bottom seismometers offshore and an array of receivers on shore to record during one day of shooting from a high volume air gun array on a chartered commercial seismic vessel. The one day refraction program is being added to an already funded high resolution multi-channel reflectiion survey in the area. %%% The deep structure of active continental margins is of considerable scientific interest. The Oregon margin is of particular interest because there is great interest in the seismic hazard of this region, and understanding of the shape, characteristics, and depth of the subducting plate will help earth quake seismologists to identify that part of the boundary which is most likely to sustain earthquakes. Dr. Trehu is a leader in the field of seismic refraction, especially using ocean bottom recorders. She has successfully carried out similar experiments in the Great Lakes and on the California margin.